Cold Spring Harbor Laboratory Molecular Genetics Courses Scholarship

The Cold Spring Harbor courses, Molecular Embryology of the Mouse, Yeast Genetics, Molecular Cloning of Eukaryotic Genes, and Advanced Molecular Cloning and Expression of Eukaryotic Genes will again be available this summer for training both students and established investigators who wish to learn new molecular techniques. These courses are viewed by the scientific community as the most outstanding and effective courses of this type in the world. Some of the most productive and respected scientists in biology have passed through these courses. This award will support students who would otherwise be unable to attend for training in both techniques and concepts which will enhance their careers in basic research in biology.